Collaborative Research: Foundations of Social and Ethical Responsibility Among Undergraduate Engineering Students: Comparing Across Time, Institutions, and Interventions

Recognizing the critical roles played by technical professionals in serving the public and addressing grand
challenges, many formal courses and programs have been created to promote professional responsibility
and ethical integrity among engineering graduates. Other interventions (e.g., service learning programs)
have been developed to more broadly challenge engineering and technology students to see themselves as
engaged citizens and community members. Yet there has been a lack of research on foundational
understandings of social and ethical responsibility among such students, including how these
understandings change over time and through participation in specific types of learning experiences.
Additional empirical evidence is needed to guide ongoing efforts to cultivate enhanced social and ethical
responsibility among future engineers, including by identifying and promoting specific interventions that
have the biggest positive impacts on students.

The proposed study responds to these gaps in the existing scholarship by asking the following research
questions: 1) What do engineering students perceive as responsible (and irresponsible) professional
conduct, and what do they perceive as socially just (and unjust) technical practices?, and 2) How do
foundational measures and understandings of social and ethical responsibility change during a four-year
engineering degree program, both in general and in relation to specific kinds of learning experiences? To
investigate these questions, a longitudinal mixed-method study design will collect and analyze
quantitative and qualitative data from undergraduate engineering students at four universities. To improve
transferability of results, these schools will represent a variety of institution types. Each collaborating
school also has large numbers of students in programs of interest, e.g., service-learning and intensified
ethics instruction. Further, the study will give priority to investigating differences in perceptions and
experiences among underrepresented student populations.